Resting Eggs of Marine Copepods: How Long Do They Survive and What Is the Affect of Anoxia and Hydrogen Sulfide on Their Viability?

During the last two decades more and more studies have demonstrated that the population dynamics of copepods in coastal areas are dependent upon the existence of benthic resting eggs. Understanding the numerical contribution of eggs to naupliar recruitment is not sufficient, however, to accurately predict population and community dynamics especially on evolutionary time scales. If eggs accumulate over an extended period of time (greater than a reproductive season) and form an egg bank, their hatching may slow the rate of evolutionary change of the species. This is because egg banks represent the genetic history of the population. The longer eggs survive the greater will be the genetic memory contained in the egg bank. These field studies will determine if eggs can survive at least three years in situ. The impact of anoxia and hydrogen sulfide on resting egg viability will be assessed in laboratory experiments designed to simulate field conditions.